Parallel Reliable Global Optimization with Interval Arithmetic

In this proposed RUI research, we will apply our current research results supported by NSF
to design efficient parallel algorithms and to develop software to reliable numerical solutions
for both unconstrained and constrained multivariate global nonlinear optimization problems.
To achieve high reliability, even in the presence of uncertainty in the data, roundo error, and
nonlinearities by finite digit computations, we apply interval arithmetic in this project. The basic
algorithms to be used are interval branch-and-bound method and interval Newton/generalized
bisection method.
In designing parallel algorithm and developing portable software, we will take full advantages
of parallel computing to significantly reduce not only elapsed computation time but also total
amount of computation due to the spatial nature of the problem we address. To achieve high efficiency,
we will balance workload dynamically among available processors through inter-processor
communication. The software will be architecture independent. General sparsity and scalability
will be considered as well. The research results, parallel software package, installation and user
guides, and testing examples will be freely disseminated through the Internet.